MRI-R2: Acquisition of a Bruker 400 MHz Nuclear Magnetic Resonance Spectrometer to Support Research at the University of Wisconsin-Stevens Point

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

With this award from the Major Research Instrumentation (MRI) program Professor James Brummer and colleagues Robert C. Badger, Nathan Bowling, and John P. Droske from the Department of Chemistry at the University of Wisconsin-Stevens Point will acquire a 400 MHz NMR spectrometer capable of supporting one-dimensional, two-dimensional, time-resolved, and temperature-dependent studies. The instrument will be used to support research activities such as: 1) tuning luminescence properties of Re(I) and W(0) complexes; 2) coordination driven planarization of aryleneethynylenes; 3) synthesis and characterization of polymers containing disulfide crosslinkers; 4) structural elucidation of synthesized indole alkaloidal natural products and prodrugs; 5) study of metal-metal quadruply bonded complexes; 6) study of germanium coordination compounds and germanium nanoparticles; and 7) deposition of nanowires onto diamond surfaces using ionic liquids.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic/inorganic chemistry, materials chemistry and biochemistry. This instrument will be an integral part of teaching as well as research.